CAREER: A Split Operating System Architecture for Servers with Memory-to-Memory Communication

This proposal aims to investigate the impact of the new I/O
technologies on the operating system architecture of the network servers.
The key ingredient of the proposed approach is the memory-to-memory
intra-server interconnect which allows non-intrusive communication
between hosts and intelligent devices. Memory-to-memory communication
eliminates or significantly reduces the overhead typically associated with
conventional communication protocols. This benefit has been extensively
studied to improve the performance of distributed applications but has not
been yet explored in support of the operating system performance.

The research will focus on how to split the operating system functionality
across a cluster of computing nodes and intelligent devices. Two novel
operating mechanisms based on memory-to-memory communication will be
explored: (i) direct application-to-device communication to offload the
TCP/IP protocol processing to TCP servers executed on intelligent network
interfaces or dedicated nodes, and (ii) direct communication between
memory-mapped file servers and TCP servers. The research will also
investigate how to use memory-to-memory communication to support cooperative
file and network servers for availability and load-balancing.

This research has been considerably motivated by the increasing interest
in VIA, InfiniBand, and programmable device controllers. Its ultimate goal is
to contribute to the understanding of how systems software should be designed
to exploit and combine these new technologies.